Presidential Awardees in Communication Using the Internet

9454186 Brett MCNC Presidential Awardees in Communication Using the Internet This one year project would pilot a program to train Presidential Awardees. A pilot group of 30 teachers receives training on the basics of connectivity and accessing and sharing resources over the Internet. Through this pilot, the project team learns the breadth and depth of training required, the type and extent of ongoing technical supports needed, and the viability of using the Presidential Awardees as experts for other educators who have access to the Internet. The training is held for one week in North Carolina and draws 30 teachers from the pool of 1994 Presidential Awardees in mathematics and science, elementary and secondary. In addition to the formal workshop, support materials are developed and tested to help teachers use SLIP accounts and networked services. Ongoing support is provided by MCNC and by teachers who participated in the earlier Global Schoolhouse project. The project may extend to supporting awardees who were not selected for the formal training if feasible. Cost sharing is not specified but the project does incude contributions and expense sharing provided by the individual participants and by company donations such as AT & T. MCNC is not responsible for any of these donations. ***